SBIR Phase I: Novel, Highly Permeable and Selective Ceramic Membranes for the Separation of Oxygen from Air

This project addresses novel, high permeability ceramic membranes for oxygen separation from air. High permeation is the result of both, novel materials and an enhancement in surface exchange kinetics by more than an order of magnitude using a patented process. This approach has already led to an improvement of over 700% in power density (> 1.2 watts/cm2 at 800ÝC) of solid oxide fuel cells over the state-of-the-art. Highly efficient oxygen ion conducting membranes for voltage driven and mixed conducting membranes for pressure driven systems will be fabricated in the form of thin dense films over porous supports. Their permeation characteristics will be investigated. It is anticipated that the resulting membranes will exhibit at least ten times greater permeability than the best known oxide perovskites. A preliminary design of an oxygen separator using these ceramic membranes will be made. The potential commercial applications of oxygen separation systems based on these ceramic membranes include: (1) Oxy-gas retrofit in glass industry, (2) Oxygen generators for medical industry, chemical industry, (3) Preservation by oxygen removal in food industry, (4) Oxidative coupling of methane, (5) Source of pure oxygen for semiconductor industry.